Computational and Algorithmic Representations of Geonetric Objects - CARGO: Computational Topology for Exploring Time-varying Volume Data

DMS-0138426
Jack S. Snoeyink

Scientific measurements and computer simulations of
phenomena like air turbulence, nuclear explosions, or
combustion in an engine, when conducted at high-performance
computing facilities, produce vast amounts of four-dimensional
data representing how variables such as temperature and
pressure change over time. This incubation project brings
together researchers at UNC Chapel Hill, Georgia Tech, and
Lawrence Livermore National Labs to develop a prototype
visualization tool that can both quickly compute such
iso-surfaces from such data sets and also provide a global
summary that can indicate where a user should look in the
data set to find interesting phenomena.

The approach to be taken is to extend work on contour trees
to a "Morse theory for a parameterized family of functions"
that is sufficient to visualize 4D data from 2D iso-surfaces
or slices. When scientists, engineers, and students can
explore the data that comes from simulation, their understanding
of the process that is being simulated can only improve.
This not only increases the return from the national
investment in high-performance computing centers, but can
also result in, for example, cleaner-burning engines.